Mathematical Sciences: Algebraic Combinatorics of HyperplaneArrangements

This award supports the research in Combinatorics of Professor Lauren Rose of Ohio State University. Her project is to study d-arrangements of hyperplanes, and the homological dimension of certain associated modules. An application of this work relates to piecewise polynomial functions, and hence to approximation by multivariate polynomial splines. This research falls in the broad category of Combinatorics, which is one of the most active fields in today's mathematics. Fundamentally, Combinatorics represents a systematization of the very first of all mathematical activities, counting. In its modern development, however, Combinatorics has gone beyond just counting to make use of a wide variety of advanced mathematical techniques, and although its roots go back several centuries, the field has had an explosive development in the past few decades because of its importance in communications and information technology.